Development and Support of the MB-System Software Package for Processing and Display of Multibeam Sonar Data

9505188 Caress This project will maintain and improve MB-System which is a software package in the public domain that supports manipulation, processing, and display of multibeam bathymetric, beam intensity and sidescan data. Additional data file formats and processing capabilities will be added, a point and click graphical user interface will be added, and enhanced documentation will be produced. ***